RUI: The Surface and Electronic Properties of the Zirconium-Boron System

This is an award under the Research at Undergraduate Institutions program. The objective of the research is the investigation of the surface and electronic properties of zirconium boride system. Single crystal specimens are being grown by an arc-induced zone melting technique. Scanning Auger spectrometry is used to determine the chemical composition of the surfaces. Thermionic projection microscopy is used to measure work function of the various crystallographic planes. X-ray photoelectron spectroscopy is used to determine the electronic band structure. The work function of these materials is being modelled. A high emphasis is being placed on the training of undergraduate students for future careers in graduate education and research.